Collaborative Research: Generic Properties of Groups, Geometric Invariants and Algorithms

The idea of genericity in geometric group theory was introduced by
Gromov and Ol'shanskii and is now the subject of very active research.
Genericity exhibits itself on many different levels in algebraic,
geometric and algorithmic properties of ``random'' algebraic objects
and in the generic-case behavior of their natural geometric invariants
and decision problems. As already demonstrated by the proposers'
work, a generic approach often leads to the discovery of objects with
genuinely new and interesting properties. For example, genericity
provides a totally new source of group-theoretic rigidity,
quite different from the standard source provided by lattices in
semi-simple Lie groups.
Much of the prior research on probabilistic aspects of infinite groups
has concentrated on mostly analytic questions, such as amenability,
asymptotic properties of random walks, Poisson boundary, and so on.
This project will focus on understanding the algebraic and algorithmic
properties of random group-theoretic objects as well as probabilistic
properties of various traditionally studied geometric invariants of
groups. Specific topics, where the proposers have already made substantial
inroads, will include: the isomorphism rigidity of generic groups, analysis
of ``random'' van Kampen diagrams and generic Dehn functions, generic subgroup
distortion and generic stretching factors of automorphisms, and the action of
the outer automorphism group of a free group on the ``frequency space'' of a
free group.

With the rapid development of modern computers, understanding the practical
behavior of the performance of various algorithms is becoming increasingly
important. Yet most of theoretical research thus far deals with the worst-case
analysis of algorithms, which often has little to do with their practical performance.
On the other hand, in many real-life applications, in particular, to public key
cryptography, there is a great deal of experimental data on the practical performance
of algorithms that has not been adequately explained theoretically. The current project
should provide a number of new benchmark ideas and theoretical tools for studying and
explaining probabilistic properties and practical behavior of algorithms both in group
theory and in the broad field of computational complexity.